Collaborative Research: Neuronal Control of Animal Movements

Animals initiate movements either in response to specific stimuli (such as touch, sound
or light signals), or as a result of an internal change in state (such as hunger). One
important aspect of such voluntary animal movements that has received relatively little
attention is their episodic nature, with distinct beginnings and endings. Much is already
known about the networks of nerve cells that control rhythmic movements like flying and
swimming, but the nervous system components that control the initiation and
termination of rhythmic behavior are largely unknown. The experiments funded by this
grant are designed to significantly advance the understanding of how nervous systems
process information generated by brief sensory stimuli and how they thereby produce
episodic locomotion.
Experiments will be conducted on isolated central nervous systems of the medicinal
leech using two different approaches. One approach is electrophysiological, with
experiments to investigate connections among nerve cells that control the initiation and
maintenance of swimming movements. The second approach is pharmacological, with
studies on the neurohormone serotonin and on other messenger molecules to learn
how these substances are involved in converting the quiescent motor system into one
that is functionally active. Because there is significant functional similarity between
swimming and related locomotory movements in all animals and because the
transformation of a system from quiescence to activity and back to quiescence is a
feature of all episodic animal movements, insights gained from this research will have a
major impact on our understanding of how the nervous system controls animal
movements generally.
The activities funded by this grant have a broader impact on science by increasing the
opportunities for undergraduates, primarily women, to conduct scientific research at
Bryn Mawr and at the University of Virginia. Also, experiments conducted in the
research laboratory are subsequently incorporated into laboratory exercises for
advanced neurobiology courses at both institutions. Finally, training is provided to
graduate students in modern electrophysiological recording techniques, data
acquisition, and analysis. Results from these experiments are widely disseminated
through posters at scientific meetings, including student presentations at local science
fairs and scientific meetings; publication in scientific journals; lectures open to the
public; and demonstrations on animal behavior at K-12 schools.